Applications of Lie Sphere Geometry to Submanifold Theory

Abstract

Award: DMS-0071390
Principal Investigator: Thomas E. Cecil

The principal investigator and his collaborators, Quo-Shin Chi
and Gary Jensen, will study submanifolds of Euclidean space and
the sphere within the context of Lie sphere geometry. Of
particular interest are submanifolds with special curvature
properties. These include isoparametric hypersurfaces, which
have constant principal curvatures, and Dupin hypersurfaces,
which have the property that each principal curvature is constant
along each of its corresponding curvature surfaces. The main
problems to be studied are the classification of isoparametric
hypersurfaces of the sphere with four principal curvatures, and
the classification of locally irreducible Dupin hypersurfaces
with four or six principal curvatures. This research is
primarily local in nature, using the method of moving frames in
Lie sphere geometry.

This project focuses on an important class of surfaces, Dupin
surfaces, which have very special curvature properties. Examples
of Dupin surfaces are planes, spheres, circular cylinders and the
cyclides of Dupin, which have been useful in recent years in
advanced computer-aided design. Dupin surfaces have higher
dimensional analogues which were first studied by the great
French mathematician Elie Cartan in the 1930's and which have
been researched extensively by many mathematicians over the past
thirty years. The goal of the proposed research is to classify
these higher dimensional Dupin surfaces. Another important
aspect of the proposal is the principal investigator's mentoring
work with undergraduate students. Over the period of the grant,
three undergraduate students will be supported by the grant for a
summer of directed independent study in an area related to the
principal investigator's own research. Each of these students
will then write an honors thesis based on this study. In the
past ten years, most of the students who have written honors
theses under the principal investigator's supervision have then
pursued graduate study in mathematics. In this way, the
principal investigator's previous grants have played a
significant role in the education of some of the next generation
of scientists.